Lead Teacher Project: K-6 Mathematics and Science Teacher Enhancement

This project is a unique opportunity for 84 selected elementary teachers (of grades K-6) from 42 schools in five counties in Southeastern Ohio's rural Appalachian region to become Lead Teachers (LTs), as well-trained and educated in science and mathematics. This project will enable them to become change agents who will target the mathematics and science problems within their own schools by working with their principals and fellow teachers to develop school-based action plans to improve all teachers' skills, implement those plans, evaluate their effects, help project staff revise the program model and assist with its dissemination in the region. They will work toward a program which will reduce the problems which limit elementary pupil achievement and contribute to poor attitudes toward mathematics and science. The design of the participating schools will become effective leaders in their own schools, capable of effecting change among their students, their peers and in their school. The LTs, many whom have been identified by fellow teachers and principals for their outstanding teaching and leadership qualities, will participate for three full years. Three 4 week summer workshops stressing the content, activities and methodology of science and/or mathematics will be supplemented by very specific leadership activities designed to enhance their capabilities to effect change. These summer workshops will be held on the campus of Ohio University with members of the science, mathematics and education faculties cooperating to provide the expertise. Academic year seminars will reinforce the content of the workshops as well provide the opportunities for teachers and staff to share their experiences and plans for school-based changes. Cost-sharing from the University, the Ohio Department of Education and the five county schools is equivalent to 105% of the NSF request. This is a strong indication of the enthusiastic endorsement and support of the participating institutions. There is excellent assurance that continuing support for the intent of the project will be forthcoming in future years.